Infrared Matrix-assisted Laser Desorption/Ionization Mass Spectrometry

This award to Professor Kermit Murray of Emory University entitled "Infrared Matrix-assisted Laser Desorption/Ionization Mass Spectrometry (IR-MALDI)" is supported by the Analytical and Surface Chemistry Program. The goals of the research are to address fundamental problems in the understanding of IR-MALDI. The research will study wavelength dependence of threshold fluences, ion yields and average initial ion velocities. The investigator will utilize unique two-pulse laser experiments to provide more information and better differentiation between the desorption and ionization processes. In addition the research will include novel applicationssuch as tissue microdissection in conjunction with IR-MALDI and the use of ice matricies for the study of non-covalent complexes.

The principle investigator is recognized for his contributions to the community through his widely available internet resources. This research has the potential for high impact in the areas of molecular and cellular biology, as well as, in mass spectrometry.